Simultaneous Recurrent Neural Networks for Static Optimization

9800247
Serpen
The well-known difficulty with a wide array of static optimization
problems is that their search spaces become too large to search for
an optimal solution within reasonable time and computational
resource bounds once the size of these static optimization problems
increases to real-life dimensions. Algorithms implemented on
conventional computing systems lack the computational power to
search for an optimal solution of a large set of real-life size static
optimization problems in a time efficient manner since they are not
able to utilize the inherent parallelism that may exist. Artificial
Neural Networks offer key advantages over conventional computing
systems as optimization problem solvers: they can take advantage of
the inherent parallelism of the optimization problem and offer very
fast computation cycles for a hardware realization of the neural
network algorithm. These advantages make Artificial Neural
Networks a very attractive choice for addressing the static
optimization problems of real-life complexity. At the present time,
the scaleability properties of current Artificial Neural Network
algorithms employed for static optimization are far from the
desired state, which establishes the motivation for the proposed
research project.

The goal of this project is to address and solve the scaling problem
which Artificial Neural Network algorithms currently experience for
static optimization problems. Towards that goal, computational
promise of the Simultaneous Recurrent Network, a trainable and
recurrent Artificial Neural Network algorithm, for static
optimization problems will be explored and assessed. Existing
neural optimizer algorithms are either trainable feedforward
architectures or recurrent architectures with preprogrammed
weight structures. This proposed research project will use a neural
algorithm which is both a recurrent architecture and trainable will
be employed to address the difficulties related to the scaling
problem. It is hoped that recurrency and learning will form a very
potent combination to address the challenging problem of scaling.